Industry/University Cooperative Research Activity: Plasma Sintering of Ceramics (Materials Research)

Research concerns analytical/experimental studies of the plasma sintering processing of high-tech ceramic materials. The work includes the develoment of a basic understanding of the plasma heat transfer process as well as the establishment of correlations between heat transfer and properties of sintered materials. Plasma-sintered ceramic components may find applications in the following areas: structural materials for advanced heat engines, burner nozzles and heat exchangers; cutting tools and bearings; insulators fo electronics products, piezoelectric devices, transistors and solar cells; infrared transmission windows; heating elements (for example, SiC); and, artificial bones and dental implants. Although ceramics are already used for many selected technical applications, the development of new techniques for making such materials will help make them feasible on larger commercial scales.